The 11th Conference on Mathematical Foundations of Programming Semantics, Tulane University, New Orleans, Louisiana

TITLE: The 11th Conference on Mathematical Foundations of This award supported the eleventh meeting in a series concerned with the Mathematical Foundations of Programming Semantics. Research in this area ranges from the design to the implementation of programming languages, focusing on the semantics of such languages, and includes those areas of mathematics that underlie these research areas. Topics ranged from type theory, polymorphism, and models of the lambda calculus to specification, program logics, and proof theories. Previous meetings have been distinguished by the breadth of interests of the participants and by the high degree of interaction that has taken place between researchers representing these diverse areas. The purpose of this award was to assist students and to create wider opportunities for participation in this research community, in particular for women and members of other underrepresented groups.